Vector Analyzing Power in n-d and p-d Elastic Scattering and Tensor Analyzing Power in d+d Breakup Reaction as Probe of CSB

9417637 Soldi Measurement of polarization observables in low energy nucleon- deuteron scattering will be carried out at the TUNL facility. The central focus will be to study charge symmetry breaking in the three-body system. Theoretical work using Faddeev calculations will be carried out in support of this experiment. Studies relating to the extensions of these three-body experiments to CEBAF energies will be carried out, specifically working on field mapping the large magnetic spectrometers which will be needed. These activities will be carried out in collaboration with personnel at TUNL and CEBAF. ***